Flexible and Adaptive Statistical Modeling

In the past 10-15 years there have been significant developments in the
areas of applied regression and classification. Much of the impetus
originally came from outside of the field of statistics, from areas
such as computer science, machine learning and neural networks. In some
cases, statisticians have helped to synthesize these innovations, often by
reinterpreting them from the point of view of standard statistical models.
As a result, we now have at our disposal a very powerful collection of
techniques for adaptive regression and classification. These are now
being applied to medical diagnosis, bioinformatics and genetic modeling,
chemical process control, shape, handwriting, speech and face recognition,
financial modeling, and a wide range of other important practical
problems. In this proposal, the investigator develops new methods for
adaptive regression and classification, with particular application
to problems in bioinformatics and genomics. One such method is the
"fused lasso", a technique which seeks solutions which are both sparse
and and smooth. It is designed for problems in which the features have
a natural ordering, e.g. in time or space. Protein mass spectometry
represents one such area of application.

In this research, the investigator develops new statistical algorithms
for analyzing data from biological and human experiments. This work
is part of the exploding field of "bioinformatics", which seeks to make
sense of the huge volume of data produced by new technologies in biology
and medicine. This kind of work represents the next step after the
sequencing of the human genome, and has enormous potential for societal
impact through disease prevention and treatment.